2011 SUNY LSAMP Bridge to the Doctorate Cohort at Binghamton University

The State University of New York (SUNY) Louis Stokes Alliance for Minority
Participation (SUNY LSAMP), under the leadership of SUNY-Stony Brook, will support
12 additional post-baccalaureate students during the 2011-2013 Bridge to the Doctorate
(BD) program at the SUNY-Binghamton. This program builds on previous program
efforts that have not only significantly added to the graduate enrollment and masters
and doctoral degrees to students from underreprested minority (UREP) populations but
have also led to important changes in the culture and practice of STEM education in
ways that not only help UREP students but all graduate STEM students.
The project adds to current efforts by SUNY LSAMP to build research capacity in STEM
education in the area of graduate education. The lessons learned from the study of the
Bridge to the Doctorate Program will be put into the context of broader issues of
systemic change and disseminated to a broad national audience.
Using the lessons learned from this project, the alliance expects to continue to develop
and refine strategies that will increase the recruitment and retention of graduate
students and further diversify graduate education departments. The strategy has the
potenital to increase the number of UREP STEM students who successfully complete
doctoral degrees in STEM disciplines and make changes in STEM departmental culture
and practice.